Analytical and Computational Framework for n-Body Simulations

This project will explore a range of computational issues related to
large-scale simulation of n-body systems using parallel formulations of
multipole and Ewald summation techniques. Today, these techniques are
known to scale to systems with tens of millions of bodies, including
simulations of molecular dynamics of real materials and full galaxies.
However, increasingly data analysis, interpretation, and visualization of
these results present serious bottlenecks. Effective algorithms for
pre-processing the data as it is generated and fast techniques for querying
the pre-processed data are necessary. This project will contribute the
following methods to those algorithms:

* Analytical quantification of performance and parallel processing
overheads of a range of advanced n-body methods in the context of various
applications.

* Methods for dynamically steering the simulation to subdomains that
exhibit "interesting" properties.

* Techniques for predicting macro properties such as Young's modulus,
permittivity, and permeability from molecular dynamics simulations.

* Methods for data analysis and visualization based on selective focus and
level of detail that are tightly integrated into the simulation.

The methods will be validated on molecular dynamics applications in
materials simulation, protein synthesis, and electrostatics.